EAGER: Exploring Quantum-Ready Geoscience Community Benchmark Problems in Atmospheric, Hydrologic, and Earth-System Sciences

Accurate predictions are essential to address natural hazards like hurricanes, floods, and droughts, and such predictions rely on complex and computationally intensive models. The enormous computational effort required to develop and use such models has prompted interest in quantum computing as a means to overcome resource limitations. But the practical value of quantum computing for geoscience has yet to be demonstrated. The goal of this project is to allow the geoscience community to evaluate the potential of quantum computing by identifying realistic problems that can benefit from quantum approaches and to identify quantum approaches that can be tested and compared with conventional methods. In doing so the project addresses the national need for better preparedness and resilience in the face of natural disasters and the need to advance the state of the art in quantum information science.

More specifically, the project develops and evaluates a set of “benchmark” problems in atmospheric, hydrologic, and broader Earth-system sciences. This is accomplished through a series of workshops and interdisciplinary interactions as well as three exploratory quantum-related pilot studies. The first pilot will investigate quantum methods for solving models used for hydrology and soil moisture. The second will develop quantum optimization and machine learning techniques for parameter calibration in urban canopy models. The third will explore uncertainty quantification and reduced-order methods for coastal boundary layer representation in models used for predicting hazardous weather. Quantum algorithms will be implemented initially using quantum “emulators” running on classical computers, and will be further tested and developed on actual quantum computers as they become available. Through the combination of workshops and research on the three benchmarks the project seeks to create a roadmap to guide geoscientists towards specific problems, or pieces of problems, which are technically suitable for concerted research as quantum hardware and algorithms mature.